New Jersey Consortium for Advanced Technological Education Planning Projects

9453258 Bakum Four community colleges and a technical university have formed the New Jersey Consortium for Advanced Technological Education to plan for and, ultimately, implement a Center for Advanced Technological Education. During the planning year, the Consortium is inviting representatives of other postsecondary institutions, school districts, business and industry, and government agencies to join with them to assess the state of advanced technological education in the region and structure a center that would provided needed leadership in promoting excellence in technological education. The planning structure involves a three-tiered process that allows for maximum involvement and input from participants while maintaining a focus to ensure achievement of project objectives. At the conclusion of the planning process, the Consortium will have developed a five-year plan for the Center that will include: a mission statement, goals and objectives, activities, evaluation process and strategies for funding the Center. ***